Scattering of Surface Acoustic Waves By Bi-Material Junctions: Theory and Experiment

***
CMS-9730779
Bogy
Numerically efficient and mathematically rigorous tools are developed for theoretical study of problems of wave propagation in composite wedges. Experimental and theoretical studies are conducted for the scattering of surface acoustic waves by a solid wedge adhered to a solid half-space made from another material. These developments have a broad variety of technical applications in seismology, geophysics, acoustoelectronics, ocean acoustics, nondestructive ultrasonic evaluation, radar, and mobile telecommunication systems.***